RUI: Systematics of the Funnel-Web Mygalomorph Subfamily Ischnothelinae (Araneae, Dipluridae)

The tropical spider subfamily Ischnothelinae will be studied using morphological features of the spiders and their webs, and patterns of their mating and prey-capture behavior. Two undergraduate students will be involved in systematic revision, analysis of ancestor-descendant relationships, and interpretation of a variety of data sets, including spider behavior captured on videotape. The wider implications of the proposed research derive from 1) the use of spiders as a model system for the study of behavior, ecology and evolution, and 2) their possible role in pest control. Adding the proposed work to the PI's nearly completed study of a closely related genus (Euagrus) will make diplurid spiders useful for testing competing hypotheses of biogeography. Finally, the project will serve as a methodological standard for the assessment of intra-specific variation in spider systematics.